The Genetic Control of Developmental Decisions

9307621 Denell Abstract The powerful methodological approaches possible with Drosophila have shown that two clusters of homeotic genes (the ANT- C and the BX-C) function to establish developmental fate. Comparative studies indicate that the ANT-C and BX-C are derived from a single ancestral cluster which arose very early in animal evolution; descendants of this ancestral cluster can be recognized in all higher animals which have been examined including mammals, where the included genes also play roles of great developmental significance. The focus of this project is a study of the evolution of the regulative functions of these homeotic genes by comparing Drosophila to Tribolium castaneum, the red flour beetle. Beetles and flies diverged about 300 million years ago and in many morphological and developmental aspects beetles are relatively more primitive. Most important is the fact that Tribolium can be used for genetic analysis with resolution approaching that possible with Drosophila. This project is directed toward that portion of the Beetle ancestral cluster which resembles the ANT-C of Drosophila. We will 1) define all necessary genetic functions in the ANT-C-like region by saturation mutagenesis and describe the resulting phenotypes 2) molecularly clone this region 3) determine the temporal and spatial pattern of expression of these genes and 4) elucidate the nature of the interactions of these genes with one another and with upstream and downstream genes. %%% Studies of the genetic mechanisms controlling developmental commitments during embryogenesis are among the most active and significant in biological research. These studies should contribute to insight into that process as well as to a better understanding of the evolution of mechanisms controlling such regulatory networks. ***